Flows and structures on metric spaces

Abstract

Award: DMS-0706876
Principal Investigator: Igor Mineyev

The main objective of this project is to develop techniques for
constructing metric spaces. One would like to have nice metric
spaces on which a given group can act, either by isometries or
topologically; and to make them "as canonical as possible". The
principal investigator's symmetric join construction and the
conformal metric on the boundaries of hyperbolic groups, and
others, were steps in this general direction. Ideally, one would
like to have a functorial construction that associates to every
group in a given class (with a metric on it), say, a uniquely
geodesic metric space with a (cocompact, isometric, properly
discontinuous) action by the group. This seems to be a very
difficult question (this is the kind of things that Perelman's
Ricci flow does to manifolds, and we essentially want its
analogue for general metric spaces). This question is related to
several major problems in topology and geometry. Our goal is to
make further progress in this direction. Another goal is to
further investigate how geometry of groups is reflected in
various types of (co)homology, and vice versa.

A metric space is one of the most important and most basic
mathematical notions: it is a set of points in which one is given
the distance between any two points, with very natural
properties. All branches of mathematics use this notion. Our
Universe is an example of a metric space, and there is no reason
for it to look like the 3-dimensional Euclidean space at all. We
are interested in understanding what kinds of metric spaces can
possibly be there, and "how good" they can be. For example, in
order to be "good", one should at least be able to pass from one
point to another by a shortest possible path within the given
space. Manifolds considered by classical Riemannian geometry have
this property. We aim for a generalization of classical geometry
from manifolds to metric spaces. One goal of this project is to
explicitly construct good metric spaces and to understand how
they form. This simple idea is related to deep questions facing
modern mathematics. As a by-product, this might give us more
insight to the structure and formation of our Universe. Our
original motivation though is the beauty and mathematical
importance of the problem rather than any particular immediate
application. (Our Universe is only a special case of a metric
space.)